NSF Minority Postdoctoral Research Fellowship for FY 1998

This action funds an NSF Minority Postdoctoral Research Fellowship for 1998. This fellowship supports research and training in the area of population biology. The research and training plan is entitled the effects of currents and larval dispersal period on the genetic structure and evolution of Indonesian stomatopod populations. Molecular genetic techniques are being used to compare patterns of gene flow and genetic structuring in Indonesian stomatopods with similar/different larval periods, across regions with unidirectional and circular currents. Comparisons will be made in a phylogenetic context to determine the effects of dispersal period, currents, and evolutionary ancestry on the genetic structuring and evolution of stomatopod populations